CCLI: Development and Evaluation of Simulation and Emulation Tools for Enhanced Manufacturing Automation Instruction

Engineering - Mechanical

Companies face the challenge of decreasing the time it takes to move products from design to manufacturing. This project equips students with new automation strategies that will help to overcome this problem through reducing the design to manufacture time of products and systems. The targeted goal of this project is to create and evaluate simulation and emulation tools to substantially enhance undergraduate education in manufacturing automation. This effort helps to bridge the gap between instruction in component design and instruction in component development. Junior and senior level Mechanical Engineering students and courses are benefiting from this new curriculum enhancement.